Robotic Welding Technology

This project uses an innovative approach to upgrade the welding curriculum by offering a new course teaching the principles and application of robotic welding and by introducing the latest welding technology through a multidisciplinary team approach, simulating an industrial automated production environment. Students, using a robotic system, synthesize conventional welding theory and skills training with automated application. The robot, indexing fixture, and power sources, when integrated are capable of replicating the automated production welding processes found in industry. The final project exposes students from welding, machine tool, computer-assisted design, automated manufacturing, computer-integrated manufacturing, and mechanical engineering technology programs to a realistic manufacturing exercise. Students use knowledge gained from their curricula as they work together in teams (manufacturing units) to develop and manufacture a product (project). A project of this magnitude, involving teamwork, electronic communication, planning, and problem-solving is invaluable to students entering an industrial/manufacturing environment.